NSF Young Investigator

This NYI award will support the research of a promising and accomplished young investigator. Her research will include a study of many aspects of particle model building and phenomenology, including the mechanism of electroweak symmetry breaking, the origin and consequences of flavor structure, and the manifestations and potential sources of CP violation. It directly addresses present and future experimental studies at Fermilab, LEP, SSC, and LHC.